Passivation Coating of Reactive Surfaces via Radio Frequency (RF) Plasma Polymerization and Flourination

RF plasma discharge reactors will be employed to deposit anti- corrosive coatings as protective layers for a variety of surface reactive materials. In addition to providing protection from oxidative degradation, these coatings provide excellent moisture protection. The proposed studies are based on recent observations of the oxidation resistance of these coatings. Furthermore we have demonstrated that these coatings can be applied to a variety of materials under appropriate plasma conditions. Specific materials identified in this proposal include rubbers, elastomers, optical devices and various carbon-carbon materials. The Phase I research effort centers on a more quantitative characterization of these films along with a determination of their corrosion resistivity.